Speed -- A Traveling Exhibition

COSI Columbus will develop "Speed," a traveling exhibition. "Speed" is a 6,000-square-foot, interactive traveling exhibition introducing visitors to the science of speed. Visitors experience extreme and slow speeds through a variety of interactives. The exhibition emphasizes the role of speed -- that is, the physical phenomenon of changing motion over time -- in governing biological, geological and electronic processes as well as the central role of mathematics as the language of physical science.